Planning: Aaniiih Nakoda College Partnership: Collaborative International Research, Culture, and Learning Experience

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering, and mathematics (STEM) instructional and research capacities of designated institutions of higher education. Expanding the STEM curricular offerings at these institutions expands the opportunities for their students to pursue challenging and rewarding careers in STEM fields, provides for research studies in areas of national interest, and encourages a community and generational appreciation for science and mathematics education. That appreciation is enhanced considerably by the ability of practitioners to collaborate with peers on areas of common interest and relevance, both nationally and internationally. This project aligns directly with that goal.

Aaniiih Nakoda College conducts this planning project to lay the groundwork for facilitating STEM faculty and training STEM students at TCUP institutions to pursue discovery with colleagues from regions of common interests, with the ultimate goal of producing a cadre of STEM professionals who can communicate effectively across geographic, cultural, and national boundaries. The planning period explores projects of mutual or related interests across multiple STEM fields of study, and establishes networks that accommodate shared exploration. It fosters meaningful relationships and collaborative efforts to address shared cultural and environmental challenges, enriching faculty and students by exposing them to a wide range of perspectives and issues.